Teacher Preparation Archives Second Printing

From August 1991 to April 1993, CIRCE (the Center for Instructional Research and Curriculum Evaluation at the University of Illinois) executed a contract with the National Science Foundation under the title "Teacher Preparation Archives: Case studies of NSF-funded Middle School Mathematics and Science Teacher Preparation Projects." The funding of the nine campuses to develop exemplary programs for middle school teacher preparation was a singular effort on the part of the Foundation. This unique program highlighted both middle school education and teacher preparation in a way never done before. The circumstances of funding as well as the development and obstacles to campus reprogramming are reported in detail in the final report. Several interpretive chapters were also included. That project culminated in a report entitled "Teacher Preparation Archives: Studies of NSF-Funded Middle School Science and Mathematics Teacher Preparation Projects" by Robert Stake, James Raths, Mark St. John, Deborah Trumbull, David Jenness, Michele Foster, Sherry Sullivan, Terry Denny and Jack Easley. Targeted both for a general and specialist teacher educator audience, the report runs over 300 pages as a paperback book. An additional 1200 copies are being printed for distribution to anyone who requests and is advertised through mathematics, science, and middle school education organizations.